Direct Intercalibration of Astronomical and Radioisotopic Time Scales: 40Ar/39Ar Dating of Tephra in Neogene Mediterranean Sections

9903078
Deino

This project aims to compare geologic time scales based on astronomical
frequencies reflected in the sedimentary record with those based on the
40Ar/39Ar method. The project will make use of readily dated volcanic ash
layers intercalated with rhythmically bedded Neogene strata in the
Mediterranean region. Dating of these ashes by 40Ar/39Ar methods will
enable direct comparison with astronomical ages, rather than using
indirectly dated horizons such as geomagnetic polarity transitions. Dating
and cyclostratigraphic modelling will be closely integrated with research
at the Universities of Utrech and Amsterdam. An important product of the
project will be evaluation of the extent to which Earth's climate in the
Pliocene and Miocene has been modulated by variations of insolation due to
eccentricity, precession, and obliquity of Earth's orbit.